HPLC and CZE for Protein Purification Processes

New HPLC and CZE equipment will provide not only a base from which the Principal Investigators (PIs) will develop new separation techniques, but also essential analytical tools to cross-check and monitor and corroborate theoretical advances. Four separation techniques will be studied: capillary zone electrophoresis, supercritical fluid-based processes, analytical chromatography, and displacement chromatography. The requested HPLC and CZE equipment will be used in these projects for analytical work and for collection of physico-chemical data required in simulation and design of the various processes. They will also be used, sometimes with modifications, to explore novel techniques to be developed for the enhancement of the efficiency of both liquid chromatography and CZE in bioprocess applications.